Development of a High Resolution X-Ray Analysis Facility forAdvanced Materials

X-ray measurements provide non-destructive structural information for many materials systems. High resolution diffraction measurements determine sample perfection, compositional and strain modulation, and interface abruptness over a few atomic planes. X- ray reflectivity measurements address electron density modulations and interface roughness in thin film systems. Such issues are highly relevant to the growth and processing of semiconductor epitaxial heterostructures, device structures, and bulk materials. Physical information, including the effect of strain and materials perfection on optical and electronic properties, are also quantitatively determined. In other fields, these techniques enhance the study of coherency strains in superalloys and of ceramic thin films deposited by sol-gel methods. In this project, we will develop a high resolution x-ray diffraction/scattering characterization facility with both high and low temperature stages. The facility shall include wafer mapping capabilities and simulation software. Major research proposals involving Si1icon- germanium multi-layers and device structures, the growth kinetics and structural properties of HgCdTe, the relationship between strain and optical and transport properties in III-V multi-layers, and misfit strain in precipitation hardened superalloys are presented.